New Connections to Westnet - 1995

9521267 Burns This award provides 56Kbps Internet access to seven sites through Westnet: College of Santa Fe Santa Fe, NM Luna Vocational Technical Las Vegas, NM Institute Navajo Community College Shiprock, NM The School of American Research Santa Fe, NM San Juan College Farmington, NM University of Wyoming Family Casper, WY & Practice Residency Program Cheyenne, WY Faculty and students at the schools benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.